Floer Theory, Symplectic Geometry and Mirror Symmetry

DMS-0203593
Yong-Geun Oh

Floer homology in symplectic geometry
was introduced by Floer in an attempt
to prove the Arnold conjecture.
Various results by Chekanov, Oh, Polterovich
and Seidel have proved that the Floer homology is a general
powerful tool to investigate symplectic topology.
In this project, Oh proposes to
further investigate structure and applications of the Floer
theory for deeper understanding of the Hamiltonian diffeomorphism group
and Lagrangian submanifolds or more generally symplectic topology.
The Floer theory of Lagrangian submanifolds, via
Fukaya's A-infinity category, also provides a geometric framework
for Kontsevich's homological mirror symmetry
proposal on Calabi-Yau manifolds. Oh's recent work with Fukaya,
Ohta and Ono provides several key steps towards a rigorous
construction of Fukaya's category by developing an obstruction
theory for defining the Lagrangian intersection Floer homology.
Complete construction will involve study of singular Lagrangian
submanifolds, Lagrangian surgery and their relations to the Floer homology.
Oh proposes to investigate these new aspects of the Floer theory
in relation the mirror symmetry on the Calabi-Yau manifolds.

The Hamiltonian formalism plays
important roles not only for solving problems in classical mechanics
but also for quantizing the classical mechanics into
quantum mechanics. The Poisson
bracket is the crucial geometric structure that plays a key role in
the classical mechanics and the quantum mechanics through the
quantization process. When one considers mechanics in
a constrained system, i.e., mechanics on a curved space,
description of the corresponding phase space
and the geometric structure corresponding to the Poisson bracket
requires the notion of the symplectic structure
and symplectic manifolds. Symplectic geometry and topology
is the study of symplectic manifolds.
In symplectic geometry, there are two most important objects of
study. One is the study of Hamiltonian systems, a special type
of differential equation, and their periodic orbits.
This is dynamical in nature. The other is the study of geometry
and topology of Lagrangian submanifolds. This is geometric in nature.
Understanding the intersection theory of Lagrangian submanifolds
is the core of symplectic topology. Floer homology introduced
by Floer in the end of 80's is a general machinery to study
this intersection theory. The Floer theory also provides a
geometric framework for the mirror symmetry phenomenon that
was discovered by physicists in string theory.
Oh's proposed research aims at, on the one hand, deeper understanding of
symplectic topology, and also aims at understanding inter-relations
between the symplectic and the complex geometry
via the study of mirror symmetry.